CSR-SMA: Toward Model-Driven Multilevel Analysis and Optimization of Multicomponent Computer Systems

This project seeks to enable model-driven optimizations spanning
multiple levels of a computing system including the architecture,
compiler, algorithm and application layers, for multiple objectives
such as performance, power and productivity. A primary goal is to
develop a comprehensive framework for model-driven multilevel,
multiobjective optimizations with a focus on chip multiprocessors
(CMPs) and large-scale, sparse engineering and scientific applications.
Key activities concern developing (i) parameterized models to
compose models of the application, architecture and compiler
transformations, (ii) an optimization framework to determine
multiobjective, optimal or pareto-optimal designs while modeling
uncertainties, and (iii) undergraduate and graduate courses on the
methodology for multilevel optimizations of computing systems,

The proposed techniques yield metrics at coarse- and medium-scales
that can be used with stochastic optimization techniques to determine
optimal design choices. The medium-scale metrics are obtained by
simulating a concatenated discrete time Markov Chain model (C-DT-MCM)
which incorporates both the deterministic and stochastic aspects
of multilevel optimizations and their impacts. Such C-DT-MCMs can
be simulated very efficiently to obtain traces which can then be
compared using statistical techniques with those from detailed
hardware simulation. Using this approach, only promising design
options need be studied in detail, using current modalities, such
as detailed hardware simulators, which can be prohibitively slow
for larger CMP architectures.